Collaborative Research: Analysis and Computational Methods for Blended Modeling of Dynamic and Quasistatic Fracture

The development of theory and numerical methods for computing solutions to the fracture initial value problem remains an underappreciated but outstanding problem of continuum mechanics and mathematics. A predictive theory of fracture and damage propagation capable of handling complex structural geometries and environmental loads would provide an effective tool used for the design of infrastructure, transportation, and energy production. The first goal of the project is to provide an initial value problem useful for prediction of damage and fracture patterns as the outcome of a mathematically well-posed initial value problem that can be implemented on computational platforms. The second goal is to provide effective computational platforms to carry out this task. The project involves training undergraduate and graduate students, who will be exposed to the active development of numerical methods for GPUs and high-performance computing clusters. Several courses are planned as are interactions with experimental materials scientists over the course of the grant period.

This project contributes to the development of theory and numerical methods for computing solutions to the fracture initial value problem. An evolution for the displacement inside the material based upon Newton's second law is to be given and a displacement-fracture pair is sought. The evolution is informed by initial values for the displacements and velocities and is driven by boundary conditions that change in time. Our approach seeks to quantitatively model fracture phenomena using the least number of material parameters to predict fracture patterns, including crack nucleation. Unlike traditional phase field models for fracture, the blended approach proposed here involves only the equation of motion for the material displacement. Similar to classical elasticity, it is based only on Newton s second law and does not require a separate equation for the phase field.